Transcendence and Geometry on Shimura Varieties in the Commutative and non-Commutative Case

This is an abstract for award DMS-0400942 of Paula B. Cohen.

This project focuses on studying various aspects of moduli spaces of
abelian varieties, including the transcendence of special values of functions
defined on them, hyperbolic equidistribution of their subvarieties, as well as
questions related to their noncommutative geometry. The problems we study will
include the development and application of results on the distribution of
special points on Shimura varieties to questions in transcendence, and the
exploration of the notion of the noncommutative boundary of Shimura varieties.
We also propose to complete, in collaboration with F. Hirzebruch, a book of
lecture notes on complex surfaces and line arrangements that will include
material related to the above research.

The algebraic numbers are those complex numbers that are roots of non-zero
polynomials with rational number coefficients. The transcendental numbers are
those complex numbers that are not algebraic. Inspired by the seventh of
Hilbert's famous list of 23 problems coined in 1900, some celebrated research
in the first half of the 20th century uncovered the first significant links
between transcendental numbers and important phenomena in the arithmetic of
geometric objects. Our research focuses on the modern development of these
ideas. We also pursue these ideas in the context of recent research on
relations between classical number theory and a modern variant of geometry
inspired by quantum physics, so-called noncommutative geometry. In addition,
we propose to complete a book of lecture notes for graduate students and
researchers, with an emphasis on certain special functions called
hypergeometric functions, and their relation to geometry in complex dimension
2.